Computerized Books for the Print-disabled Science and Mathematics Students

A standard notational system for scientific and mathematical symbols will be developed to be used in computerized versions of science and mathematics textbooks. Software will be written to strip publishers' typesetting tapes for science and mathematics textbooks of compositing symbols. The resulting ASCII format can be used to drive refreshable computer braille, large print display or speech output devices. The print disabled student can then study the texts using a personnel computer with a user-friendly word processor. This technique complements services of readers and recordings.